MedIX: MEDical Informatics eXperiences in Undergraduate Research

The proposed REU site is in the area of Medical Informatics and will address
issues related to the workflow driven acquisition of image data in an
electronic medical record environment, and the subsequent post-processing of
the image information to improve the accuracy and efficiency of the
consumers of this information, notably radiologists. In particular,
segmentation, texture analysis, classification and annotation of computed
tomography (CT) images using computer vision and data mining techniques will
be emphasized.

Since many racial minorities are significantly underrepresented in computer
science (CS) departments, the primary educational objective is to promote
graduate studies for bright, talented undergraduates - especially
first-generation college students and undergraduates from groups
historically underrepresented in exact sciences. Furthermore, since the
demand for individuals who see their career opportunities at the
intersection between Medical Informatics and CS far outstrips the current
supply, the second educational objective is to promote and encourage
interdisciplinary undergraduate studies in computer science and medical
informatics.

The MedIX (MEDical Informatics eXperiences in undergraduate research) REU
site will run for three summers, with eight student participants spending 10
weeks each summer doing research both at DePaul University, Intelligent
Multimedia Processing Laboratory and Northwestern University, Feinberg
School of Medicine, Imaging Informatics Laboratory.